Collaborative Research: Three-Dimensional Vorticity Dynamics in Vortex-ring Wavy-wall Interactions

Vortex rings are swirling fluid structures that appear in many natural and engineering flows. Applications include the way the heart moves blood to how jets cool hot surfaces and control airflow over vehicles. The interactions of vortices with a surface determine how heat is transferred, how fluids mix, and how forces develop. Most current understanding of this process comes from studies of vortex rings interacting with flat or smoothly curved surfaces. In many real applications, vortex-wall interactions occur over surfaces with significant geometric corrugations. The effects of the local surface features on vortex behavior remain largely unexplored. This project will investigate how specially designed wavy surfaces influence vortex behavior. The research will examine whether surface shape can be used to guide and control flow outcomes. The results will provide new knowledge for designing surfaces to improve cooling and reduce energy losses in advanced manufacturing, energy, and transportation systems. The project will also train students in experimental and computational methods and engage K–12 audiences through hands-on demonstrations of fluid motion.

The project will examine how local variations in the shape of a surface and the timing of incoming vortices work together to influence flow behavior. Carefully controlled experiments and computer simulations will be used to study these interactions. Vortex deformation, stretching, and interactions will be tracked as they encounter wavy surfaces. The study will measure how surface features affect pressure, flow separation, and the formation of new swirling structures near the wall. Single and repeated vortex interactions will be compared. The project will identify patterns that determine when vortices remain stable, reconnect, or break down. The research will generate high-quality datasets. These datasets will support development of data-driven models and artificial intelligence tools. The results will generate design principles for using surface shape and timed flow forcing to improve heat transfer in applications such as microelectronics and turbine cooling. The results will also provide guidance to enhance mixing in additive manufacturing and chemical processing and to control airflow over aircraft wings to reduce drag and noise.